Symposium on Survival of HIV in the Environment, October 16-18, 1991

This is an award to support conduct of a symposium on the issues involving survival and fate of the Human Immunodeficiency Virus (HIV) under various environmental conditions. Investigators who have conducted preliminary research with support under NSF Grants No. 89-03224, 89- 05210, 89-13065, 89-15842 and 90-18567 will present their findings for the purpose of discussion, critical review and identification of further research needs on issues associated with the survival of the HIV when subjected to environmental stress. The Symposium will be conducted under auspices of the Infectious Disease Epidemiology Program at the Johns Hopkins School of Public Health and Hygiene, October 16- 18, 1991.